Conference: Nanoscale Science and Engineering (NSE) Grantees Conference 2008; Arlington, Virginia; 3-5 December 2008

The National Science Foundation (NSF) Nanoscale Science and Engineering (NSE) Grantees Conference is a program review and research networking workshop that highlights the ongoing research and educational activities of the NSF NSE grant programs. The goals of this conference are to promote dissemination of innovative research progress, facilitate research partnerships, and identify future research directions. Oral presentations with question periods, panel discussions, and poster sessions are planned as platforms to promote inter-university and academic/industry/national-laboratory interactions.

These interactions help to advance the goals of the US National Nanotechnology Initiative (www.nano.gov). The conference will aid in the development of the skilled workforce and supporting infrastructure needed to advance research and development of nanoscale science, improve understanding of the social, ethical, health and environmental implication of nanotechnology, and facilitate the transfer of developed nanotechnologies into commercial products.